RI: Scaling Offline Evaluation of AI Agents through Abstraction

Artificial intelligence (AI) agents are increasingly used in sectors like autonomous driving, intelligent personal assistants, and software engineering, promising to revolutionize productivity and data-driven decision-making. However, deploying these autonomous systems without sufficient testing can lead to high-stakes errors. This project addresses the critical need for methods that can evaluate an agent's decision-making performance before it is ever deployed in the real world, providing necessary confidence to practitioners, decision makers, and the general public. The goal of this project is to develop techniques that utilize data from past decisions to predict how a new, untested agent would perform in a given domain without ever running the untested agent. The methods that this project will introduce will enable the evaluation of AI agents prior to deployment and thus increase confidence in AI-based decision-making and prevent the deployment of agents that might make costly errors. These methods will accelerate the adoption of AI-based decision-making across society and ensure that such decision-making is toward broader societal good. Additionally, the project will train graduate and undergraduate students toward producing a workforce that can further the advancement of AI in society.

More specifically, this project focuses on scaling offline policy evaluation (OPE) methods to large-scale, complex domains. OPE methods use historical data on past decisions and their outcomes to predict the expected outcome when a new, untested agent starts making decisions in a given domain. While OPE can theoretically predict an agent's performance under very general conditions, current methods often fail to scale because they attempt to adjust for every difference between past and new decision-making policies, even those irrelevant to performance. This project develops new OPE methods based on the frameworks of state and action abstraction to focus on critical task structure and discard irrelevant differences. The research is organized into three thrusts: 1) introducing state abstraction methods to identify and focus on the subset of state information critical to predicting performance; 2) developing action abstraction techniques that leverage hierarchical sub-task decompositions to simplify evaluation in long-horizon domains; and 3) validating these methods on the use-inspired benchmarks of autonomous driving, large language model (LLM) agents, and sports analytics. Across thrusts, the focus is on contributing to the practical deployment of AI agents by scaling OPE methods to realistic use-cases.